Geometry of Rationally Connected Varieties

Rationally connected varieties form a class of varieties that
coincides with rational and unirational varieties for curves
and surfaces, but represents a very different (and better
behaved) class in higher dimensions. The investigator studies
aspects of rational connectivity; in particular, the relation
between rational connectivity and unirationality and the
implications of rational connectivity for existence of points
on varieties over non-algebraically closed fields. In relation
to the latter, the investigator studies the geometry of
parameter spaces for rational curves on a rationally connected
variety.

The central goal of algebraic geometry is to learn more about
the solutions of polynomial equations by studying geometric
objects, called varieties, associated to them. For example,
if an ellipse is given to us by a polynomial in two variables,
we might ask how the shape of an ellipse affects the solutions
of the polynomial. Recently, algebraic geometers have introduced
a new property of varieties, called rational connectivity, and
results to far indicate a strong connection between the algebra
of a system of polynomial equations and the rational connectivity
of the variety they define. The investigator studies this
connection further.